Roberts Wesleyan College - Internet Direct Connection

9528308 Tanner The Roberts Wesleyan College requests support from NSF fro connection of two college campus networks to NYSERNet. NYSERNet a midlevel network will provide operations management and information services and it will give the campus access to the Internet connection, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connection to be able to access information resources throughtout the state, the nation and the world. The connection will benefit the faculty, staff students of Roberts Wesleyan College campus as well as the community in general.